Architecture and OS Support for Real-Time Fault- Tolerant Communication

Shin This is a project to build and experiment with a multiprocessor for real-time applications. The multiprocessor will ultimately consist of 19 nodes arranged in a hexagonal mesh, with each node containing three 68020 processors for computation, a commercial controller for communications control, and a custom chip for communications routing. An initial multiprocessor containing only a few nodes is being developed to allow experimentation that will guide full-scale construction. Experiments on the system consist largely of synthetic benchmark programs produced by a workload generator. The workload generator produces benchmarks that have computation, communication, and deadline characteristics of several classes of applications, but are easier to vary an instrument than real applications would be.